Gravitational Wave Physics and Astrophysics with LIGO

Gravitational-wave (GW) physics and astronomy have entered a new era: GW transient events detected with the LIGO and Virgo detectors in their first four observing runs (O1, O2, O3, and O4) are frequent. The increased rates of detection of GWs from compact binary mergers include the potential for rare and exceptional events with high black hole spins, spin-induced orbital precession, and/or eccentric orbits - all of which give crucial clues to the formation of compact binaries in astrophysical environments. There is also the potential for many discoveries of GWs from other astrophysical sources such as GW bursts that are not well modeled by templates derived from General Relativity; indeed, entirely new classes of GW sources may be discovered. These observations are enabling a wealth of studies, ranging from fundamental physics to astronomy, astrophysics, and cosmology. The PI's team, working with the LIGO Laboratory and LIGO, Virgo, and KAGRA (LVK) Collaborations, develops methods to confidently identify weak GW signals from astrophysical sources in the noisy detector data and interpret the results in meaningful ways. The project will further develop and employ these methods using data from IR1 and the O5 run. The team has been deeply involved in the assembly of the GW Transient Catalogs (GWTC-1 through 6) containing events detected in the O1 through O4 runs, and is preparing to continue this work with events from IR1 and O5. The team conducts robust analysis of individual events with Bayesian parameter estimation and identification of exceptional events that may not fit into the overall population of events observed so far. The team works with the LVK to present these results in publications that are foundational in the fields of GW physics and astronomy, to promote the progress of science. During the period covered by this award, the PI's team will continue and deepen their efforts towards making their science accessible to a broad range of people and groups, through the following activities: conducting a GW science study group for undergraduates throughout the academic year, including weekly meetings and lectures as well as research project mentorship, with participants from Caltech, Pasadena Community College, and other local colleges and universities; mentoring students in the LIGO Summer Undergraduate Research Fellowship (SURF/REU) program; training undergraduate research students in scientific computing and GW data analysis in GW Open Science Center (GWOSC) Open Data Workshops; and supporting open science through the GW Open Science Center.

The project focuses on the identification of rare and exceptional events in the GW Transient Catalog of confidently detected binary black hole (BBH) mergers, which may have significant spin-induced orbital precession and measurable eccentricity in the LIGO-Virgo frequency band. The team will work to extend GW waveform models derived from numerical relativity (the NR surrogate model) to include all the relevant physics, including (for the first time) both spin-orbit precession and eccentric orbits. The team will apply Bayesian parameter estimation to promising detected events as well as controlled simulations, developing robust methods to identify events with significant precession and/or eccentricity, and explore whether they form a distinct population beyond what has been observed so far. The team will search for BBH events with eccentricity using both modeled waveform templates and "model-informed" GW burst methods. The team will contribute to the search for BBH and other short-duration GW bursts in IR1 and O5 data with burst methods; weakly modeled burst algorithms can be tuned to target CBC mergers, but also provide the broadest known approach to capturing waveforms with any complex effects. Observing precession and eccentricity in real data is difficult in the presence of glitches; work to decouple the imprints of glitches in the data from imprints of spin and precession is under development and is essential to validating future discovery claims. These activities broaden the discovery space of GW sources and are among the most important and urgent frontiers in GW astrophysics. They capitalize on the strengths and expertise of two Caltech Physics postdoctoral scholars in the PI's group. The goal is to have advanced methods in place and in use for the fifth observing run (O5), planned to begin in 2028.